Philosophy and Cognitive Ethology

9320214 Allen Working under the direction of Professor Marc Bekoff of the University of Colorado, Dr. Allen is focusing on the impact of philosophy of mind and cognitive ethology on each other. Dr. Allen is a philosopher; Professor Bekoff is an ethologist. Dr. Allen is studying under Professor Bekoff's direction the empirical techniques appropriate to ethology and the explanatory objectives of ethologists. Dr. Allen's research objectives are to improve our understanding of the extent to which philosophy of mind can help advance empirical objectives of cognitive ethologists and the extent to which ethological data bear on philosophical theories of mind. During the course of the year that he is spending working in Colorado, Dr. Allen is participating in Professor Bekoff's study of antipredator vigilance in birds. These two have already jointly authored articles on conceptual issues in cognitive ethology. They are using this experience working together in order to develop an extended treatment of cognitive ethology and its relationship to philosophy of mind. This study promises to be of significance to specialists in both fields as well as to the wider societal interest in the nature and origins of mentality in humans and other animals. ***